RI: Collaborative Proposal: Complementary Lexical Resources: Towards an Alignment of WordNet and FrameNet

Machine-readable lexical resources are essential to Natural Language
Processing applications such as information extraction and machine translation.
The largest lexicon is WordNet, with
semantic information about more than 150,000, or lexical units (LUs).
A smaller, independently developed resource is FrameNet,
which provides detailed information about the syntactic patterns for LUs.
The project investigates the ways in which these complementary resources
can be combined using the semantic-syntactic information from
FrameNet (FN) where available and falling back on less detailed
entries from WordNet (WN) in other cases.

WN and FN exhibit fundamentally different design principles.
WN groups (near) synonymous LUs into
"synsets," which are interconnected via conceptual and lexical relations
to form a semantic network. FN groups LUs according to the
"semantic frame" they evoke, which is a type of event, relation or
state along with the participants involved in the event. Thus,
while antonyms such as _praise_ and _blame_ may be in the same FN frame
they are in different, though interlinked, WN synsets. Moreover, FN frames
cover semantically related nouns, verbs and adjectives; WN synsets
do not mix part of speech. Crucially for NLP applications, the resources
differ with respect to sense distinctions.
Alignment will be investigated for the following differences:
lexical coverage, sense distinctions, taxonomic and
other semantic relations, and scalar frames for adjectives.
Some 1,000 word senses are examined in detail so as to provide an idea of
the distribution of each of these phenomena over the entire lexicon.

This theoretical work lays the foundation for constructing a unique,
invaluable resource for the NLP community.